Entropy-Compressed Data Structures

Entropy Compressed Data Structures

In this report, we highlight the intellectual challenges of the
proposal, both theoretically and in practice. The interplay between
theory and practice distinguishes this proposal from many in the
database searching area. The goal of an entropy-compressed technology
could have a major impact on data structure design and implementation.
We give a three-year research plan of desired and expected outcomes.

In this proposal, we introduce a new data structures model and
technology called Entropy-Compressed Data Structures that addresses
the importance of limiting the size of text databases and search
structures that index huge volumes of data. The main goal is to
achieve "optimal" space terms (with a leading coefficient of 1, with
provably smaller second-order terms) while not sacrificing optimal
lookup time. We measure our "optimal" space usage in a data-aware
manner, as a function of the inherent randomness (or entropy) in the
input data set. This model is an outgrowth of the recent
space-efficient discoveries made by the PI and coauthors in the area
of text indexing, which has caused a rebirth of research in text
indexing and has spawned considerable interest in space-efficient data
structures.

In order to analyze the space required, we need measures (or models)
to evaluate these succinct structures and quantify the
space-savings. The space required for a structure should relate in
some sense to the entropy of the data that the structure is built
upon. We formalize a variety of intuitive and meaningful models as a
foundation for a uniform and structured study in a number of
applications.

We plan a three-pronged approach in developing Entropy-Compressed Data
Structure technology:

First, we focus on the fundamental dictionary problem,
where the task is to represent a set S of t items out of a universe
U = {0, ..., n-1}. Dictionaries are critical in text indexing
and other database applications as a building block in designing
entropy-compressed data structures. For text-based applications,
dictionaries serve as a powerful black box that operates within some
entropy-aware partitioning of the data. Any improvement to a
dictionary structure would have tremendous impact on all such
dependent applications.

In the first year, we expect to devote our efforts in developing a
powerful and succinct fully indexable dictionary that operates in
near-optimal time. In particular, we hope to achieve bounds for a
dictionary supporting the operations of rank and select (and thus the
predecessor operation as well) in gap + o(log {n choose t}) bits
(where gap refers to the optimal space cost using a gap-encoding of
the items in the dictionary), while achieving time bounds of Anderson
and Thorup, namely O(min{{sqrt{log t/loglog t},
((loglog n)(loglog t))/logloglog n, loglog t + log t/loglog n }}) time.
In a similar vein, we wish to further push our structure to achieve
gap + o(gap) bits without sacrificing lookup time. These
contributions would be quite major theoretically, and their impact
could be considerable in practice.

As a further step, we would also like our dictionary to be dynamic, as
this development would be of immediate interest to the database
community. In practice, we want our structures to be simple, so that
they can be readily implemented. For instance, a good implementation
also becomes a potential solution to the IP lookup problem, since one
could abstract an IP lookup as nothing more than a query to find the
longest common prefix match (which is very similar to the predecessor
problem).

Second, once a powerful dictionary is developed to serve as a black
box, we can begin to focus on the technology of space-efficient
representations of the application data structures themselves. Text
indexing has received quite a bit of attention in recent years, and we
focus on improvements to these structures to motivate a similar
progression of work in other application areas. We will show very
clearly the relationship between text indexing and the dictionary
problems and how they can be used as a basic paradigm for making data
structures entropy-compressed.

A strong component of this proposal, in comparison with other projects
in the IDM program, is the marriage of theoretical analysis and
practical implementation. We have demonstrated rigorous mathematical
proofs of optimality in our earlier work, and moreover, the mathematical
elegance has translated to efficient implementations in practice. We
regard our strengths in theoretical design and analysis as a very
strong component of this project.

In the second year, we propose to improve the state-of-the-art in text
indexing. The work in text indexes boasts two individual results.
The first achieves nH_h + o(n) bits of space with O(m) lookup time
(where H_h is the hth order entropy), which is nearly optimal in space
(aside from low-order terms) but not in time. The second achieves
epsilon^{-1}nH_h + o(n) bits with o(m) lookup time, which is optimal
in lookup time (aside from low-order terms) but not in space. We
expect to achieve a text-indexing data structure which takes nH_h +
o(n) bits of space while simultaneously supporting o(m) optimal lookup
time. Achieving a result of this type satisfies all of the goals of
developing entropy-compressed data structures. Further improvements
involve adding more power to compressed suffix arrays (CSAs). We hope
to dynamize compressed suffix arrays without increasing time or space,
as well as supporting range-searching and occurrence queries in
optimal time without increasing space. The choice of h carries with
it a potentially nontrivial model cost; in order to alleviate this
inefficiency, we will use gap encoding. We also expect to present a
compressed suffix array that adaptively chooses the best context
length h using nH_h + o(n) bits with o(m) lookup time.

In the third year, we expand our efforts to the areas of
multidimensional matching. We begin our exploration by first
developing the crucial notion of a multidimensional Burrows Wheeler
Transform. In particular, we are considering a series of novel
transformations of the data that simultaneously allow fast access to
the data, ease of compression, and do not violate the various
constraints posed by Giancarlo. We then expect to achieve a
multidimensional suffix array that operates on d-dimensional data in
just n^d H_h + o(n^d) bits with O(polylog n^d) time.

Once we have a generic space-efficient technology, we will aim to make
it more practical via algorithms engineering by emphasizing dynamic
updating, adaptivity, and simpler design of the implementation. We
envision many applications to spatial databases, GIS, geometric
processing, and numerical algorithms.